Modeling and Identification of Nonlinear Input/Output Differential Systems

9215170 Pearson Techniques will be developed that facilitate the least squares parameter identification for systems modeled by a class of nonlinear input-output differential and functional differential equations. Examples for this class will be found in diverse areas such as pharmacokinetics, robotics, lasers, and viscoelastic materials, as well as modeling for control systems engineering. Techniques will also be developed for the nonparametric multivariable linear system (frequency transfer function matrix) identification problem, as well as the parametric and (possibly) the nonparametric identification of time-varying linear differential system models. Unique to these formulations will be a discrete-frequency format brought about by the introduction of a set of complex-valued Fourier based modulating functions for the classical Shinbrot method of moment functional. A basic motivation for using Shinbrot's method is that it circumvents dealing with unknown initial and boundary conditions for time-limited input-output data, i.e., no state estimation is involved. In addition to the discrete-frequency format, a basic motivation for developing the Fourier modulating functions is that the underlying computations will use the DFT/FFT algorithm, thus providing a "fast algorithm" for setting up the least squares problem. Structure determination procedures may be developed for particular classes of system, like those modeled by polynomial input-output differential equations. ***